U.S.-Japan Seminar on Clean Steels for the 21st Century: Fundamental Issues; to be held April 1996 in Japan

9508799 Cramb This award provides partial financial support for a U.S. - Japanese Seminar on Clean Steels for the twenty first Century, which is being held in April 1996 in Japan. This seminar will allow a free exchange of information, extensive discussions, and opportunities to promote international collaborative research. This is the fourth joint seminar in a series. The other seminars were held in 1976, 1983, and 1991. The main theme of the seminar is future production of defect-free steel via near net shape processing that is environmentally benign. This theme is a radical departure from the past the featured smoke stacks and air pollution. University scientists and engineers will be strongly encouraged to interact with industrial participants on topics such as new iron production techniques, new casting process, recycling of dust and sludge, and economic impacts of recycling and environmental issues. This topic has its roots in fundamental research, and the information needed to change the infrastructure of steel making via environmental benign processes is often proprietary. This seminar will promote free exchange of fundamental information on generic problems that are precompetitive in nature. These topics are of major interest in industry and academia on both countries. The Program Manager recommends Carnegie Mellon University be awarded $14,000 for 18 months.